SDCI Sec: Traffic modeling and generation with custom fidelity for cyber security experimentation

Traffic generation plays an integral part of cyber-security defense testing in
network testbeds. Generating just any traffic is easy, but generating realistic traffic
is hard. The key reason for this is that "realistic" means different things to different
people. The definition of realism depends on the use of the traffic in testing, but
all existing traffic generators have a fixed definition of realism that users cannot
change.

This project will build a traffic generator whose definition of realism can be fully
specified by a user. The generator will consist of three modules: (1) a module that mines values for
user-specified dimensions from traffic logs, (2) a module that generates random
traffic that fits the model mined in the previous step, (3) a module that replays
traffic from a log so that it exactly matches the logged traffic along the user-
specified dimensions.

Intellectual Merit: The key novelty of this approach lies in the customizable
definition of realism that the generator will support. By allowing users to specify
their own reality dimensions this project's traffic generation tool will be generic
enough to meet the evaluation needs of any cyber security researcher. Further,
integration of the traffic generation from models and traffic replay in a single
tool is novel; existing tools support only one of these generation approaches.
Finally, the tool will support traffic generation at application, transport or
network level while existing tools support it only at one select level.

Broader Impact: The proposed work will advance cyber-security defense
research by supporting rigorous and realistic evaluation of its products. It will do
that by both fitting researchers' needs and by being extremely portable and
easy to deploy and use. Because users will be able to customize the definition of
realism as they desire, the evaluation will properly stress the cyber-security
defenses and its results will be predictive of the defenses performance in real
deployment. The traffic generator's capabilities to both generate traffic from
learned models and to replay it from network logs enable a wide range of
testing strategies and support thorough exploration of problem space. Better
evaluation strategies will lead to better cyber-security defenses. The project will
integrate our traffic generator with the DETER testbed for cyber security
experimentation. All software will also be released as open-source under the
GNU GPL v3 license.